Group Travel for U. S. Participants in the 21st Texas Symposium on Relativistic Astrophysics, Florence, Italy, December 9-13, 2002

AST 0220010
Fenyves

This award provides travel funds for 25 U.S. scientists to attend the 21st Texas Symposium on Relativistic Astrophysics in Florence, Italy, on December 9-13, 2002.

The Texas Symposia take place every other year and serve as an international summary of recent developments in the main areas of modern astrophysics, cosmology, and relativity. The biannual meetings are held in different cities in the U.S., and every second or third meeting is held in a foreign country. The event in 2002 will take place in Florence, Italy, and will be sponsored by the newly established National Institute of Astrophysics (INAF), in collaboration with the National Institute of Nuclear Physics (INFN).
***